Research in Low Energy Nuclear Physics

Research will be performed on studies of fundamental interactions and neutrino properties. The Princeton University cyclotron will be used to produce Ne19 which will be used in fundamental interaction studies to look for possible right handed currents and violation of time reversal invariance. Low temperature micro-calorimetry techniques will be studied as a potential for neutrino mass measurements. Work will be performed on design and testing of the containment vessel and liquid scintillator purification techniques for the Borexino solar neutrino detector being developed in Italy.